PLN: POWER SHIFT: A Proposal to Augment the Performance of Girls in SMET Studies

POWER SHIFT: A Proposal to Augment the Performance of Girls in SMET Studies

In keeping with the mission to educate children and families, encourage
creativity, and challenge all learners in new and innovative ways, the Maine Discovery
Museum plans out-of-school-time programs that will increase competence in science and
mathematics and promote technological fluency for middle school students. With the
passage of a landmark initiative by the 119th Maine State Legislature that equips all 7th
and 8th grade students with laptop computers, MDM plans programs that will expand the
use of laptop computers beyond the school day, encourage parent involvement, and
convey fresh ways of learning and teaching math and science. With a history of
providing exhibits and educational programs that are based on recognized learning
theories and that accommodate a wide-range of learning styles, we have an excellent
opportunity to implement project-based activities that encourage creative problem
solving, social interaction, and group communication. We believe these program
ingredients, along with staff development workshops that focus on gender equity issues,
will foster improved achievement and greater participation by females in SMET
professions.